RUI: Studies of Strongly Interacting Self-Assembled Systems

Fisch This research focusses on experimental investigations of strongly interacting self-assembled systems. Static and dynamic light scattering techniques will be used, at atmospheric pressure and at high pressures, to study the physical properties of semidilute and concentrated bulk surfactant solutions. We intend to investigate a wide variety of systems including zwitterionic surfactant solutions, mixed surfactant solutions and solutions that contain either rod-like or tubular micelles. The two dimensional phase behavior of tubular aggregates on the surface or an isotropic fluid will be studied both optically and through direct physical measurements. Studies of model systems that consist of small particles on a vibrating table will complement these measurements. Overall, this program will provide essential thermodynamic information and an improved microscopic understanding of bulk semidilute and concentrated micellar solutions and new insights and model systems for understanding phase transitions in two dimensions. %%% The objectives of this research are: 1) to obtain a better understanding of the properties of semidilute and concentrated self-assembled systems by using optical and physical chemical techniques; 2) to study the properties of these solutions when the self-assembled aggregates form a 3-d solution and when they are confined to the surface of an isotropic fluid, thus forming a 2-d nematic phase. Overall, this program will provide essential thermodynamic information and an improved microscopic understanding of bulk semidilute and concentrated micellar solutions and new insights and model systems for understanding phase transitions in two dimensions.